Collaborative Research: Capillary Interfaces

NSF Award Abstract - DMS-0103848

Mathematical Sciences: Collaborative Research: Capillary
Interfaces

DMS-0103848
McCuan

This research addresses behavior of solutions to the
mathematical equations of capillarity theory. The
equations will be studied in their full nonlinear
generality, using procedures deriving from the intrinsic
structure of the physical problems. These procedures
have turned out to interact in a natural way with newly
developed methods of geometric measure theory, which were
developed initially for the special case of minimal
surfaces in other contexts. In a number of cases of
interest, striking and unusual behavior of solutions was
uncovered in this way. Our investigations will continue
in directions that have already led to discoveries of
discontinuous dependence on boundary data, symmetry
breaking, failure of existence under physical conditions,
failure of uniqueness under conditions for which
solutions exist, and discontinuous reversal of comparison
relations.

Capillary interfaces play an important role in many
practical situations, notably in reduced gravity or in
configurations for which physical length scales are very
small. Capillarity is an essential concept for
describing situations in which substances are in contact
at surface interfaces and do not mix. A precise
understanding of the mathematical properties of solutions
of the capillarity equations will provide valuable
insight for resolving such matters as how to design fuel
tanks on an orbiting spacecraft so that the fuel will be
accessibly located, predicting where oil or water resides
in underground pore spaces of rocks, or determining the
manner in which the faces of microelectronic components
will become partially covered when they are dipped in a
coating bath. The work under consideration is of
particular relevance for predicting unexpected behavior
of liquids in these and in other applications.